Physiological and Genetic Basis of Microbial Resistance to Copper

Copper is released into the environment from many sources, including the burning of fossil fuels and wood products, mining and smelting operations, and through the application of copper compounds in agriculture for plant disease control. Copper has accumulated in certain soils and water systems to levels that have caused toxic effects on plants, animals, and microorganisms. Little is known about how organisms can adapt to increased levels of copper, but such information could have practical value in designing methods for detoxifying copper or for genetically modifying plants and beneficial microbes for increased tolerance to copper. Dr. Cooksey has isolated copper-resistant bacteria from an agricultural system where copper compounds are routinely applied to plants for bacterial disease control. He has also cloned and partly characterized the genes that determine copper resistance. This proposal is to further characterize the genetics of this system, and to investigate the physiological basis for copper resistance. Since these bacteria accumulate high levels of copper, such that they become bright blue, this system probably involves a unique mechanism of metal resistance; other known metal resistance systems usually involve either the exclusion of the toxic metal (with reduced accumulation), or the detoxification of the metal by reduction or methylation. The combined molecular genetic and biochemical approaches described in the proposal should provide new fundamental information on how microorganisms can adapt to toxic levels of copper and how they interact with this metal at the molecular level.